Acoustic Telemetry Experiments with Squid

In the Azores, the squid (cephalopod) Loligo forbesi is large enough to carry smaller versions of the transmitters that have been used on pelagic fish such as swordfish. The technique can be applied to squid in their natural habitat with a minimum of effort spent for development of new instrumentation. The squid will be followed in course and depth for a period of several days. Diel vertical migrations, associations with the bottom and with sound scattering layers, and response to the thermocline will be investigated. A program of controlled experiments on squid held in tanks will allow evaluation of effects of the implanted transmitters on survival and behavior, and will provide opportunities to extend a series of measurements of intra-mantle pressure and respiration to a squid that is an order of magnitude larger than those previously studied. The investigation will probe the limits of the application of telemetric techniques to studies of this poorly understood, difficult to sample, biologically and economically important group of nektonic animals. %%% Squid in the vicinity of the Azores are an economically important resource and are large enough to be tagged with acoustic telemeter devices. The daily behavior of Loligo forbesi can be used to understand how the animal finds enough food to support its high respiration and growth rates. Experiments with squid kept in tanks in the Azores will show the extent to which the tag and tagging process cause mortality, and the variability in respiration rate and intra- mantle pressure of this mobile nektonic predator.